Summer School in Nuclear Physics Research

This grant will support a Summer School program of lectures in nuclear physics aimed at graduate students who are interested in specializing in this branch of science.